International Support for a Coordinated SITES/OECD Study in the United States and Elsewhere

The IEA International Coordinating Center (ICC) at SRI proposes to work with OECD staff, U.S. researchers, and researchers in other interested countries to create an implementation plan that coordinates and, to the extent appropriate, combines, the national-level implementation of the complementary IEA and OECD studies. This process will include coordinating research goals and methodologies, merging instruments, coordinating schedules, and providing technical support and quality assurance so that the studies can be done together in those countries (including the United States) that choose to do so. This is a significant, novel, and time-sensitive effort that will increase the payoff and efficiencies of both studies and lay a foundation for future organizational collaboration.